Sivuqaghhmiit History and Culture: Values for Survival in aChanging World

This project is designed to study the socio-religious history of the Yup'ik Eskimos of Sivuqaq (St. Lawrence Island, Alaska). The goal is to study present religious systems and the socio-religious changes which took place following the introduction of Christianity in the 1900s. Ethnographical, ethnohistorical, oralhistorical and contemporary oral data will be used to construct an ethnographic narrative based on native perspectives, the so-called emic perspective. The study draws theoretically and methodologically on the relationship of the anthropologist to human subjects, and the participation of Native people in the research process.